International Symposium on High Dielectric Constant and Other Dielectric Materials for Nanoelectronics and Photonics. To be Held in Las Vegas, Nevada, October 10-15, 2010

This supports the 8th International Symposium on High Dielectric Constant and other Dielectric Materials for Nanoelectronics and Photonics to be held as part of 218th Meeting of The Electrochemical Society, in Las Vegas, Nevada during October 10-15, 2010. More specifically, the funds will be utilized for partial support of the travel expenses and registration support for several junior faculty members and several deserving graduate/undergraduate students.